Structural, Petrological and Geochronological Studies of the Granulite to Eclogite Transformation in the Deep Continental Crust, Bergen Arcs, Norway

Exhumation processes of deep crustal rocks are still poorly understood. Exceptionally deep exposures of Caledonian continental crust within the Bergen Arcs of western Norway regionally expose granulite to eclogite transition rocks, thus offering a window into the roots of a continent-continent collisional orogenic system that subsequently was unroofed. This project will derive P-T-t paths from metamorphic relationships, thermobarometry and geochronology. Systematic observations of the structural relationships combined with the petrologic and geochronologic results should provide significant insights into both the tectonic evolution of this deep crustal portion of the Caledonides and the understanding of orogenic processes in continent-continent collisional belts.